Undergraduate Scholarships for Advancing Education in Mathematics, Computer Science, and Engineering

The objectives of this project are (1) to provide scholarships for 30 academically talented but financially needy undergraduates each year, (2) to provide the support necessary for such students to complete their undergraduate degrees in their chosen major, and (3) to encourage the selected students to pursue graduate education in computer science, mathematics, or engineering.

The project focuses on students who have at least sophomore standing and who are majoring in computer science, engineering, or mathematics. To be eligible for the scholarships, students must also have demonstrated financial need and a minimum grade point average of 2.7.

Applicants are recruited via letters to eligible students. Decisions about scholarship awards are based on academic and leadership achievements and future potential, the intent to pursue enrichment opportunities, and the projected impact of the scholarship on the student's educational plan and future career. The project management team seeks a diverse set of scholarship recipients.